The Application-based, Technology-supported, One-Track Mathematics Curriculum Program (ATO)

The Mt. Hood Community College (MHCC) Mathematics Division is developing, implementing and disseminating a comprehensive Application-based, Technology supported, One-track Mathematics Curriculum (ATO) for all students (baccalaureate prep and technical prep).The four levels of study incorporate the National Council of Teachers of Mathematics Curriculum and Evaluation Standards (NCTM) and the Secretary's Commission on Achieving Necessary Skills (SCANS) recommendations.ATO responds to the education reform movement in mathematics while addressing: the lack of appropriate course materials targeting community college students; the lack of a framework to train adjunct mathematics instructors (on which the community college heavily relies); and, the lack of articulated curriculum for the same level of mathematics taught in middle schools, high schools, community colleges and four-year schools. The following are the three objectives for development and implementation of the ATO Program.OBJECTIVE 1. Develop and publish course materials for Levels II and III (applications oriented algebra) of ATO: a textbook for each level that fully integrates the use of technology; and, a hands-on activities and real-world interdisciplinary applications supplement.OBJECTIVE 2. Develop a framework for the ongoing staff development of community college adjunct mathematics faculty to enable them to effectively deliver a coherent mathematics curriculum.OBJECTIVE 3. Develop in collaboration with middle schools and high schools in the community college district an articulated coherent mathematics curriculum that addresses content-based proficiency assessment strategies, and supports uniform implementation of the NCTM Standards in mathematics education.Methods to accomplish these objectives build on previously-established team efforts at MHCC, partnerships with industry, and collaborative activities with other schools including middle schools, high schools, and four-year colleges.Northwest Region al Educational Laboratory is instrumental in the evaluation of the project, along with the Program Management Evaluation/Assessment Advisory Team.